ISS: Beyond buoyancy: The role of non-gravitational transport phenomena on the melting dynamics of small particles

In laser-based additive manufacturing, also known as metal 3D printing, micrometric power particles need to fully melt and mix into the melt pool to form a material with uniform properties. If this does not happen, defects form and the mechanical integrity is severely compromised. Fast melting and good mixing are hence crucial. In drug delivery, on the other hand, drugs usually need to dissolve within a certain time frame; too fast or too slow dissolution compromises the patient’s health. Common to these two scenarios is the need to accurately predict not only the melting (or dissolution) times, but also the dispersion, i.e., flow or mixing, of the molten material. At these very small scales, however, the physical mechanisms of melting and the dispersion of the melt are expected to be different than for larger particles, since gravity and its accompanying buoyancy flow become negligible. Instead, other phenomena, such as diffusion, inertial flow, or surface tension flows are expected to influence melting. The problem is: exactly how these particles melt is unknown due to the difficulty in observing their behavior at such small scales, making additive manufacturing, polymer waste recycling, and drug delivery less reliable, less economical, and less energy efficient. In addition to the technological advancements that this project could enable, this project also contributes to workforce development in science, technology, engineering, and math (STEM) by engaging pre-college and undergraduate students in research and hands-on engineering design activities.

Scientifically, this research will overcome experimental imaging limitations by conducting experiments with millimetric particles on board the International Space Station (ISS), where the microgravity environment removes buoyancy flows while simultaneously allowing for easy visualization of the melting process. The goals of this research are to 1) identify relevant non-gravitational transport phenomena, 2) quantify their influence on melting times and melt plume dispersion, and 3) develop correlations to predict melting rates for small-Rayleigh number conditions, representative of microparticles on earth. Symmetry-breaking in the melting processes disrupts pure diffusion and isolates non-diffusive contributors to phase change and flow dynamics. The three aims target the relationship between diffusion and inertia by studying the influence of shape and external solid boundaries on melting boundary layers and the role of thermo-capillary Marangoni flow by studying melting close to a liquid-gas interface or applying an external temperature gradient. Ground-based control experiments will complement microgravity experiments to expand the data range for model and theory development and to validate the transferability of ISS results to microscale melting phenomena on earth, which aim at improving the efficiency and reliability of melting and dissolution processes in manufacturing and health care applications.